Travel: WINS Travel Funds in Support of SCinet at SC21

This travel grant supports five volunteers to attend the 2021 Supercomputing
Conference (SC21) scheduled November 15 - 21, 2021 in St. Louis, Missouri, as part of
the Womening in IT Networking at SC (WINS) program who will participate in building
and operating SCinet, the advanced computer networks which supports the annual
conference. The WINS program, started in 2015, enables talented early to mid-career
women from diverse backgrounds and regions of the U.S. research and education IT
community to volunteer to participate in SCinet and experience the hands-on
development and construction of the conference network.

The intellectual merit associated with the project is to continue the expansion and
broadening of knowledge and training for women network engineers and information
technology professionals who desire to build expertise and continue their education and
careers in network and computer systems. The broader impact associated with the
program is through the diverse representation of organizations and applicant
backgrounds representing Minority Serving Institutions, Established Program to
Stimulate Competitive Research (EPSCoR) states, and historically underrepresented
minority groups. Through the participation in SC and SCinet, the travel funds provide
training, professional development, and career opportunities for women in a workforce
that has been historically male and non-minority-dominated.